NSF Young Investigator

9457921 Haile Crystal growth, chemical synthesis and characterization of fast ion conductors by x-ray diffraction and a.c. impedance methods. Materials of interest include proton-conducting acid sulfates and phosphates, proton-conducting doped perovskites, and oxygen- conducting pyrochlores. Studies of electrode/electrolye interactions via in situ x-ray diffraction, and refinement of structural parameters from powder data using Rietveld analysis. %%% ***